A Technology Assessment of Mobile Robots in Western Europe

The objective of this grant is to conduct a technological assessment of mobile robots, and research in this field, in western Europe. In a broad context, this assessment by a team of outstanding experts in the emerging field of intelligent robotics, comes under the heading of international interaction. The activity may be viewed as a combination of the aspects of international cooperation and international competition. The grant is in response to the call for increased awareness of work abroad as cited by the National Academy of Engineering in its report entitled, "Strengthening U.S. Engineering through International Cooperation -- Some Recommendations for Action."